Molecular Neurobiology of Aplysia Meeting; Cold Spring Harbor, New York; October 3-7, 1990

The sea snail Aplysia possesses very large nerve cells which enable researchers to study the nervous system at the molecular and cellular level. Analytical techniques are used to study the cellular changes which form the biological basis for habituation and learning in this mollusc. Aplysia, and other related species, have been useful in the investigation of the neurological basis of complex behavioral patterns. A conference, under the auspices of the Cold Spring Harbor Laboratory, has been planned to assemble researchers studying the cell and molecular biology of Aplysia. The intent of this meeting is to discuss new methods and findings that have emerged from the successful utilization of the Aplysian nervous system.